Enhancing Computation in the Sciences

Computing - Other (35)
The interdisciplinary field of computational science combines simulation, visualization,
mathematical modeling, programming, data structures, networking, database design, symbolic
computation, and high performance computing with various scientific disciplines. Despite the
shortage of computational scientists, a 1998 survey found only two undergraduate special degree
programs and 15 undergraduate courses in the field. Unfortunately, few computational science
textbooks are appropriate for undergraduate science students.
After extensive discussions on enhancing computer use in the sciences, Wofford College
faculty members designed a curriculum for students majoring in science or mathematics, called
"Emphasis in Computational Science." A student electing this program will complete a science
major, two existing courses (Programming in C++, Data Structures), two new computational
science courses (Scientific Programming, Data and Visualization), and a summer internship.
This project will create, evaluate, improve, and expand undergraduate computational
science course modules that are rich in applications. These materials will be developed in
collaboration with scientists and will be tested and evaluated at several institutions. With
dissemination over the World Wide Web, the modules will instruct and provide applications that
many institutions can use in a variety of courses. The project will provide the materials and will
be a catalyst for improving undergraduate computational science education nationally.